Investigations on a Dual-Mode Dynamic Membrane Gas Separation Process

This is a feasibility study of a membrane gas-separation process operated with the feed pressure cycled between two levels. The process is suitable for separating gases with opposite diffusivity and solubility selectivities. The main driving force for separation in this process is the solubility selectivity. Thus, many gases with close permeabilities can be separated by this process, but not by the conventional constant-pressure process. By proper cycling of the feed pressure, the separations achievable by the conventional processes are also enhanced. Experiments on several polymer-gas mixture systems will be performed. Model simulations will accompany experiments. Success of the research would lead to new possibilities for membrane separations which are not achievable by the conventional operation.